Acquisition of Facilities for Structure Determination and Analysis

Acquisition of Facilities for Structure Determination and Analysis Due to parallel developments in molecular biology, instrumentation, and computers, the field of structural biology has been growing at an explosive rate over the past 5 years. This has been manifested both by a significant increase in the productivity of existing researchers and a tremendous growth in the number of the active research groups. Several units at The Johns Hopkins University have been active participants in this growth. Building on a long- standing history in X-ray crystallography, the Department of Biophysics and Biophysical Chemistry at The Johns Hopkins University School of Medicine has grown from three faculty members in 1990 to seven in 1995, all of whom are actively involved in macromolecular structure determination and analysis. In addition, united by the Institute for Biophysical Research on Macromolecular Assemblies, founded through a National Science Foundation Biological Research Center grant in 1989, a much larger group of researchers throughout the School of Medicine, the School of Hygiene and Public Health, and on the Homewood Campus in the School of Arts and Sciences and the Engineering School, are pursuing research and training young scientists in this area. With this large number of active researchers, our needs for instrumentation have continued to grow. The powerful methods of gene cloning, protein expression, and biomolecular synthesis have greatly increased the number of important problems that can be addressed at a detailed structural level. This explosion has increased the demands on instrumentation infrastructure. With over 20 currently active crystallographic projects and a number of others in earlier stages of development, our current facilities for data collection, data processing, structure refinement, and structural analysis are no longer adequate. In the same way, both the power of computer modeling techniques and our faculty representation in this area have increased. Our ability to carry out both computer modeling and crystallographic and NMR structural calculations is increasingly limited by our present computer facilities. Access to these facilities and their inherent speed have become rate limiting in our research efforts. To address these issues, the acquisition of a new high performance computer system and an additional X-ray diffraction position sensitive detector are proposed. The computer system, such as the Silicon Graphics Power Challenge XL system, will provide a ten-fold (or greater) increase in computation speed with parallel increases in memory and data storage capabilities over our current facility. Such an increase will remove current impediments to structure refinement and will make accessible computer- based approaches to important problems in macromolecular folding, dynamics, and thermodynamics that are currently out of reach. Examples include calculations of side chain entropies at individual sites within structurally characterized proteins, Monte Carlo calculations related to protein folding and to the properties of unfolded peptides and proteins, and molecular dynamics simulations of membrane proteins including ion channels. The detector system, such as an R-Axis II imaging plate system, will increase the rate at which structural problems of current interest can be solved and will allow development of new projects that are not being actively pursued due to limited detector time at present. These projects include proteins and proteins fragments involved in interactions with DNA, in mediating cell-cell interactions, and in catalyzing important metabolic processes. Both systems will significantly improve the training environment for graduate students and postdoctoral fellows in macromolecular structure determination and analysis methods both as part of our graduate training programs which include formal courses in X- ray crystallography and in molecul ar modeling methods and as part of research laboratory experience.